Engineering Research Equipment Grant: FT-IR Spectrometer

A Fourier-transform infrared (FTIR) spectrometer is acquired. This will be used to study adsorbates and surface chemistry on submicron nonporous single-crystal particles of oxides such as alumina or titania. The geometry of these particles is established by high- resolution transmission electron microscopy; adsorbate behavior is then observed using FTIR and temperature-programmed desorption. A similar approach is applied to the study of small metal particles supported on these oxides. This work is also relevant to the chemistry of ceramic-ceramic interfaces.